Seismic Attenuation and Anisotropy in the Carpathians and Adjacent Basins: Upper Mantle Role in the Last Stages of Tethyan Closure

EAR-0230336
Raymond M. Russo

The Carpathian arc marks the suture of a now-closed major embayment of
Tethys, the expansive ocean basin that once stretched along the southern
margin of Eurasia from the western Mediterranean to Indochina. The arc
is unique in several respects: Closure of the remnant Tethys here entails
some degree of very recent (Miocene-present) continent-continent collision
and disappearance of, most likely, a part of the Tethyan oceanic lithosphere
into the upper mantle. However, study of Carpathian tectonics may have wide
application, since the processes now visible there must have taken place
elsewhere in the past along the diachronously closing Tethys margin.

The unusual seismicity, volcanism, and surface deformation at the Vrancea
bend zone of the Carpathian arc (45.5 N lat., 25.5 E long.) has yielded
a debate about their cause(s): one viable tectonic scenario invokes
subduction of a piece of Tethyan oceanic lithosphere, a remnant of which
is presumed to be just detaching from continental lithosphere of the
East European and Moesian platforms. A second model holds that oceanic
lithosphere subduction ended some time in the late Miocene, and that since
then a portion of East European or Moesian platform continental lithosphere
has been delaminating along a horizontal mid-lithospheric interface and
dripping down into the upper mantle. The predicted distribution of high
velocity `slab' and low velocity asthenosphere in the upper mantle beneath
Vrancea zone differs between these models and can be determined seismically
by a combination of tomography (ongoing in Romania and independent of this
project) and measurements of seismic attenuation and shear wave splitting,
which delineate the distribution of cold lithosphere and warm asthenosphere,
and the flow directions of any upper mantle asthenosphere. The active
seismicity at Vrancea can be exploited to delimit both slab distribution
and upper mantle flow directions via measurements of seismic attenuation
and shear wave splitting. Targeted tests of mantle responses to Tethys
closure will include establishment of the presence and thickness of
mantle asthenosphere beneath the study region, observations of mantle
flow directions, estimation of seismic attenuation and associated
inferences concerning mantle temperature fields, and, ultimately, a
strong test of competing hypotheses put forth to explain the unusual
seismicity and volcanism of the Carpathian arc. Finally, improved
understanding of seismic wave propagation and attenuation in the study
region will directly enhance our understanding of seismic hazard in
this populous area.

--